CAIG: Quantifying Aerosol Effects on Clouds Using Physics-Informed Generative Artificial Intelligence

This project will develop a new approach powered by artificial intelligence (AI) models, trained on satellite observations and field measurements, to isolate and quantify the effect of aerosols on ocean clouds. Low clouds over the ocean cool the Earth by reflecting incoming sunlight. Aerosols, including smoke from wildfires, can influence how bright these clouds are and how long they persist, but the strength of these effects remains poorly understood. This research will improve understanding of aerosol effects on marine low clouds and improve our capability to predict the environment, thereby helping American communities prepare for extreme weather, protect public health, and guide sound investments in infrastructure and risk management. The project will also train students and researchers in cutting-edge AI methods, strengthening the nation’s AI-ready scientific workforce.

To quantify aerosol effects on marine low clouds, this project will use episodic North American wildfire plumes that perturb low clouds over the North Atlantic Ocean as opportunistic experiments. The research team will develop three physics-informed generative AI models. Together, the first two AI models will predict the counterfactuals (i.e., aerosol concentration and cloud properties if there were no wildfire influences), while the third AI model will quantify the probability distributions of aerosol concentration and cloud properties during wildfire periods. The team will develop these physics-informed generative models by integrating transformer-based architectures with a Lagrangian approach that explicitly encodes emissions and air mass history to capture their influences on aerosol and cloud properties. These models will enable isolating and quantifying aerosol effects on marine low clouds from the influences of meteorology. In addition, the team will develop a human-in-the-loop, agentic AI framework that accelerates this quantification and extends the methodology into a general-purpose AI tool for other "attribution-under-covariability" challenges in the geosciences, where the effect of one driver must be disentangled from co-varying factors.